Studies of Two-Level Atoms in Driven Optical Cavities

This research program focuses on the experimental study of the dynamic evolution of prepared quantum states, the transition between the semiclassical and quantal regimes, and the response of a quantum system to non-classical excitation. The experiments will be conducted in a cavity QED apparatus, where optically pumped atoms interact with a single mode of a driven high finesse optical cavity. The investigations will probe dissipative quantum processes and will help elucidate questions of continuous quantum measurement for open systems.